Trade Under Incomplete Information: An Empirical Investigation for the Case of HIV

The purpose of this research is to empirically analyze the effects of incomplete information concerning people's HIV status on their sexual behavior and the spread of the AIDS. The study will utilize data from the San Francisco Home Health Study and will obtain three sets of estimates to address three different objectives. First, the fraction of individuals engaging in potentially disease transmitting circumstances will be assessed. Second, estimates will be obtained of both the extent to which incomplete information is present during the transmissive activity and the effect it has on such activity. Third, the study will be determined how the prevalence of AIDS might stabilize itself over time. This research is important because public health interventions aimed at controlling the epidemic are almost exclusively information based and because this project has important implications for the effects of such measures.